The Language of Dispute Managment in the Kingdom of Tonga

Abstract Narrative Language can be studied from a variety of perspectives: as a formal object, as a cognitive capacity, as a cultural artifact, as a medium of social interaction. The project proposed here falls into the latter category. As a study in what has been called the ethnography of communication, the research proposed here is based on the premise that the expla- nation of the forms, and form-meaning relations, that language takes on in actual usage is to be found in the social uses to which the language is being put. The study focuses on one category of language use, dispute management, which has received considerable attention already from ethnographers of communication, and therefore is the topic of a growing theoretical framework to which this study will be related. The new dimension which the proposed study will pro- vide is examination of linguistic usage in a language and a culture fundamentally different in salient respects from the western cultures in which much of the previous research on this topic has taken place. The locale of the research will be Tonga, an island nation in the southwest Pacific with a Poly- nesian language and culture. Tonga has a mixture of western and indigenous institutions for formal resolution of disputes, including the court, the fono or town meeting, and the church. The Tongan language includes universal patterns such as inter- rogatives and quotations, and also locally specific patterns such as distinct speech levels depending on the social status of the interlocutors and the person being talked about, and these are used to definite rhetorical effect in complex inter- active ways in the dispute management process. The focus of the project will be to understand, describe, and explain these linguistic patterns in terms of the social settings in which they are used. The Principal Investigator is a leading anthropological linguist who has made a number of important contributions throughout her career to the ethnography of communication. For the past few years she has been focusing her attention on the uses of language in legal settings. The project proposed here thus builds in a natural way on her ongoing research.